Acquistion of a Stable Isotope Ratio Mass Spectrometer for Determining Nitrogen Transformations and Metabolism in Soil,Plant, and Animal Systems

Funding is requested for the acquisition of a stable isotope ratio mass spectrometer. A common theme to all of the research programs is the regulation of N use efficiency. An overview of the objectives of each program are 1) to quantify and better understand N transformations in soil, particularly N losses, 2) to understand the fundamental processes of inorganic N transport, N metabolism, and N fluxes controlling plant N use efficiency, and 3) to develop the underlying basic principles regulating N cycling and metabolism in the efficient conversion of dietary protein of ruminants. Specific research areas includes; regulation of denitrification and N immobilization as related to soil environment and soil management, ecology of soil bacterial involved in N transformations, fate of organic and inorganic N sources in agricultural soils, factors controlling adjustments in N uptake and altered partitioning of reduced N in N limited plants, roles of plant sink and source strength on allocation of N, and effects of endogenous proteins and blood urea-N inputs to the rumen N pool on dietary protein use. A MS designed for stable isotope ratio analysis, the preferred method of 15N analysis, would directly benefit and further enhance the individual and collaborative programs of the principal investigators and stimulate the research endeavors of other scientists.